SBIR Phase I: Microbe-based scaffold for the generation of structured cell-based meat

The broader impact of this Small Business Innovation Research (SBIR) Phase I project is to address challenges of animal farming through cell-based meat production. Approximately 30% of the Earth’s surface, 70% of all arable land, and 29% of the global freshwater supply is dedicated to animal farming. Livestock is responsible for 18% of global greenhouse gas emissions and is a major threat to biodiversity. 70% of all antibiotics used in the United States are used on farm animals and contributes to the emergence of antibiotic-resistant bacteria. Cell-based meat development is estimated to generate significant reductions in greenhouse gases and use of land, water, and energy, as well as antibiotics in meat production. The proposed project aims to develop novel technologies that will accelerate cell-based meat development.

The proposed project develops a novel scaffolding material for the generation of animal tissue, specifically skeletal muscle. The proposed project will ultimately advance current scientific knowledge on the mechanisms underlying tissue generation and elucidate the molecular principles governing cell adhesion, differentiation, and growth of animal cells during tissue development. Key technical objectives include demonstrating that the proposed scaffold can be successfully customized to harbor any cell adhesion molecule of interest, and proving that a novel biomaterial can be adapted as a tissue-culture-grade reagent. Fluorescence microscopy will be used to ascertain the extent of animal cell adhesion and growth on the proposed scaffold. These studies will advance understanding of animal cell interactions with their extracellular milieu, and how environmental molecular properties and cues are tuned to influence de novo tissue development in vitro.